U.S.-Brazil Cooperative Science Program: Large-Scale Structures and Velocity Flows in the Universe

This US-Brazil Cooperative Science award will support research collaboration by David Latham of the Smithsonian Astrophysical Observatory and Luiz da Costa of the Observatorio Nacional de Brasil in Rio de Janeiro, Brazil. The project aims to complete a wide-angle survey of galaxy redshifts in the Southern Hemisphere and a survey of distances for a sample of early- type galaxies in both galactic caps. By conducting the wide-angle survey, the collaborators will map out the large-scale structure of the nearby universe to a magnitude limit of Bo = 15.5. The survey of distances associated with early-type galaxies will enable the researchers to map out large-scale velocity flows and density fields in the nearby universe. Both the US and the Brazilian sides will contribute their expertise to the processes of observation, data reduction, and analysis of results. Their research will likely lead to mutual benefits by contributing to knowledge of large-scale structures and velocity flows in the nearby universe.